Rigidity Phenomena in Geometry and Dynamics

Abstract

Award: DMS-0906085
Principal Investigator: Ralf Spatzier

The research proposed lies between dynamical systems and
geometry. Its principal goal is the investigation of the
dynamical and geometric structures of "higher rank" systems in
these areas. These systems also appear naturally in seemingly
quite separate areas such as number theory. The investigator will
study rigidity properties of actions of higher rank abelian and
semi-simple Lie groups and their lattices with the ultimate goal
of classifying such systems under suitable geometric or dynamical
hypotheses. In particular, he will study higher rank hyperbolic
abelian actions on tori and Cartan actions of rank 2. These
special cases, important in their own right, will serve as
testing ground for more general conjectures. Also, additional
tools for classification are available in these cases. The
investigator will also study actions by semi-simple groups and
their lattices preserving affine and other geometric structures.
In addition, he will analyze Riemannian manifolds (especially
higher rank ones) and their geodesic flows. Geometric, dynamical
and group theoretic tools will be used in this research.

Dynamical systems and ergodic theory investigate the evolution of
a physical or mathematical system over time (e.g. turbulence in a
fluid flow). New ideas and concepts such as chaos and fractals
have changed our perception of the world fundamentally. Dynamics
and ergodic theory provide the mathematical tools and analysis
for these investigations. Dynamical systems have had a major
impact on the sciences and engineering. Symbolic dynamics for
instance has been instrumental in developing efficient and safe
codes for computer science. Tools and ideas from smooth dynamics
are used as far afield as cell biology and meteorology. Geometry
is one of the oldest fields in mathematics, and generally studies
curves, surfaces and their higher dimensional analogues, their
shapes, shortest paths, and maps between such spaces.
Differential geometry had its roots in cartography, and is now
studied for its close ties with physics and other sciences and
applied areas (computer vision e.g.) as well as internal
aesthetic reasons. Geometry and dynamics are closely related as
some important dynamical systems originate from geometry, and
geometry also provides tools to study dynamical systems. One main
goal of this project studies when two dynamical systems commute,
i.e. when one system is unaffected by the changes brought on by
the other. Important examples of such systems arise from
geometry.